Development of a Computing Infrastructure for Political and Social Science Research

Hanneman With National Science Foundation support, the University of California, Riverside, will develop a networked computing infrastructure for the departments of political science and sociology. This will consist of: a central Unix machine providing remote-login service for all users as well as data-storage facilities; two fast workstations providing processing power for users working on large data sets or computationally intensive problems; 16 Pentium based machines and various other PCs which will serve as X-Windows terminals. Several existing machines will be upgraded to have X-Windows capability and all will be connected via the University's ethernet. The server and workstations will run a variety of statistical software through SAS, SPSS and Gauss and these will provide primary tools for data analysis. This system will be used by both faculty and graduate students and serve both research and training purposes. Projects to be conducted involve analyses of: congressional roll-call data, data on Supreme Court opinions, the performance of different maximum- likelihood estimators on the choice problems faced by voters in multiple-candidate elections, simulation of models of social processes, Mexican politics, and the sociology of garment manufacturing in Los Angeles. Currently the research in the departments of sociology and political science is constrained by computer limitations. This award will remedy that situation.